A 3-D Acoustic Current Meter for Upper Ocean Measurements

OCE93-14357 Williams The Woods Hole Oceanographic Institution will undertake an Ocean Sciences Instrumentation development project to develop a low-cost, modular 3-D acoustic current meter for moored, upper ocean measure- ments. The development will be accomplished in incremental steps building from the existing Benthic Acoustic Stress Sensor (BASS); through a single sensor cable suspended instrument; to a self- contained flux meter configuration; and finally to a modular, expendable velocity sensor. At each step, the prototype will be tested in an experimental program. The self-contained flux meter will be tested in DOE's Ocean Margin Program, and the modular velocity sensor will be tested as a Richardson number float in association with a separate NSF project. During at sea testing, an acoustic vorticity meter will be deployed to measure the shear and turbulence associated with 3-D coherent motions of the Langmuir type. Each prototype including the vorticity meter, will be tow or tank tested to determine its flow distortion, wake obstruction, vortex shedding and compass response. Measurement of flow is a first order task in ocean studies, yet except for several specialized studies such as turbulence in boundary layer flows, one depends on two axis velocity measurements from expensive (as opposed to expendable) current meters for this flow determination. There are now three general research areas where 3-D current meters are needed: in near surface measurements where coherent 3-D motions are present and where surface and internal waves produce significant vertical flow; in transport studies where the product of vector flow with a scalar quantity must be averaged over time and depth and perhaps across a section; and in vorticity resolving arrays for determining shear in the presence of wave motions. The most promising transitions to a 3-D solution today are acoustic techniques and this project builds upon experience with an acoustic vector veloc imeter to address each of these tasks.